Thermographic Imaging: Enhancement of the Thermodynamic Curriculum in the Physical and Life Sciences

This project is utilizing infrared thermographic imaging as a key tool in teaching concepts of thermodynamics to majors and non-majors in physics, chemistry, and biology courses. Equipment purchased with grant funds is capable of resolving temperature differences of 0.1 centigrade degrees in the range from -20 C to 280 C. Thermographic imaging is enabling students to visualize energy relationships and to understand the laws of thermo-dynamics, thermal properties of matter, and energy transfer in living things. While useful in a variety of courses, the equipment is central to a new course "Foundations of Physics and Chemistry" which is a prerequisite to General Chemistry and General Physics courses at Catawba College.NSF grant funds are being matched by funds from non-Federal sources.